Maya Skies: Research and Capacity-building in Fulldome Planetariums

The Chabot Space and Science Center in Oakland, CA is forming and leading a national collaboration producing Maya Skies, a full-dome digital planetarium theater project with several deliverables: a 25-minute Maya Skies show, a model for collaborative production in the full-dome field, research on full-dome immersion experiences and learning, the establishment of a national consortium of seven full-dome theaters and professional development workshops for the field. The research, conducted by the Institute for Learning Innovation, will test the degree to which personal relevance influences free-choice learning experiences. New technologies for digital, high resolution image data-capturing of archaeological sites will be employed. The project's goal is to advance the digital planetarium field with innovations in show production and research and with increased impact on public audiences and the practice of planetarium professionals.